Domain Decomposition in Control of Multiple Link Structures

9972034
Lagnese

This research will explore optimal control, approximate controllability,
and exact controllability of systems of partial differential equations on
one-dimensional graphs or on two-dimensional polygonal networks by
means of domain decomposition. The basic idea of domain decomposition
in this context is to decouple the global optimality system through an
iterative procedure on individual elements, in which the couplings at the
vertices and/or edges are replaced by certain boundary conditions. At each
iteration the local problems, which are themselves local optimality
systems, may be solved in parallel. The choice of boundary conditions in
the local problems must be such that, in particular, the transmission
conditions in the global optimality system are restored in the limit of the
iterations. The motivation for this approach is twofold. On the one hand,
controllability properties and optimal control laws are more readily
available at the local, subdomain, level. Consequently, there is good
reason to believe that it may be possible to construct suitable control laws
for the global system by local iterations, even in situations where such
control properties are not a priori known at the global level. On the other
hand, and perhaps more importantly, the approach is motivated by its
numerical potential. Complex, heterogeneous structures or media, after
some discretization, inevitably lead to very large systems to be solved
numerically. The transmission conditions in the global problems, which of
course must be also realized numerically, are very difficult to handle
numerically at the global level. It is very natural, therefore, to decompose
such structures into their canonical constituents, to discretize those and
then run the computations in parallel with the communications between
elements taking place once an iteration step is completed.

In many practical applications it is necessary to devise control laws to
regulate the dynamic behavior of structures such as trusses, frames, robot
arms, solar panels, antennae, airfoils or deformable mirrors that are
comprised of multiple interconnected flexible elements such as beams,
membranes, plates, shells or combinations thereof. This research will
explore optimal control, approximate controllability, and exact
controllability of such structures by means of domain decomposition. The
basic idea of domain decomposition in this context is to devise optimal
control laws for the global structure through iterations of optimal control
laws on individual elements. At each iteration the local control laws may
be simultaneously obtained through parallel computations. The
motivation for this approach is twofold. On the one hand, controllability
properties and optimal control laws are more readily available for
individual flexible elements. Consequently, there is good reason to believe
that it may be possible to construct optimal control laws for the global
structure by iterations on individual control laws, even in situation where
such control properties are not a priori known at the global level. On the
other hand, and perhaps more importantly, the approach is motivated by
its numerical potential. Complex, heterogeneous structures or media, after
some discretization, lead to very large systems to be solved numerically.
The coupling conditions among individual elements that comprise the
global structure are very difficult to handle numerically at the global level.
It is very natural, therefore, to decompose such structures into their
canonical constituents, to discretize those and the then run the
computations in parallel with the communications between elements
taking place once an iteration step is completed.